Conference: Fourth Joint Alabama--Florida Conference on DifferentialEquations, Dynamical Systems and Applications (JAF DEDS)

The fourth Joint Alabama-Florida Conference on Differential Equations, Dynamical Systems and Applications (JAF DEDS) will be held in Miami, Florida, on May 18--19, 2026. Organized by the mathematics departments at the University of Alabama at Birmingham, Auburn University, Florida International University, and Florida State University, this conference continues a rotating annual series that strengthens regional collaboration in applied mathematics. Growth in the applied mathematics community across Alabama and Florida has increased research activity in mathematical physics, fluid dynamics, applied harmonic analysis, and mathematical biology. JAF DEDS provides a venue for disseminating recent results and fostering collaborations among established researchers, early-career scientists, and graduate students, with special attention given to participants lacking federal funding, including graduate students, postdoctoral fellows, and early career researchers. The event will be open to anyone interested in the conference themes.

The scientific program focuses on dynamical systems and partial differential equations arising in mathematical physics, including Korteweg-de Vries, nonlinear Schrödinger, and Euler-type models. These equations are central to understanding nonlinear wave phenomena -- such as traveling waves, vortices, and coherent structures -- with applications in optics, fluid dynamics, plasma physics, and new materials. The conference aims to connect researchers across diverse areas of PDEs and dynamical systems, foster exploration of their interconnections and applications, and stimulate interactions among regional experts in these areas, graduate students and junior researchers. Additional information is available at: https://case.fiu.edu/mathstat/news-events/may-26-conference/index.html.